Stochastic Models of Solute Transport at the Laboratory and Field State

This research has the objectives of establishing mathematical equations to describe the transport of solutes in underground flow, devive methods of computing the parameters for those equations, and to compare results of the theoretical work to those now becoming available from large-scale experiments.